COLLABORATIVE: Women's Engineering Participation in the US: What can the US Learn from Women's Decisions to Pursue Engineering in Diverse Cultural Contexts?

Non-technical Abstract
Women's participation in engineering is a crucial national priority. The shortage of engineers in the US weakens the country's position as a leader in the global market and restricts our capacity to solve infrastructural challenges. This project involves research in four countries (Jordan, Malaysia, Saudi Arabia, and Tunisia) to assess the contextual factors that encourage women's participation in engineering in tertiary education and as a career. In three of the four countries identified (Jordan, Malaysia, and Tunisia), women's participation in engineering is much higher than in the US, despite social, political, and economic restrictions on women's participation in public life. In the fourth country (Saudi Arabia), women's engineering participation is also on the rise. This project seeks to understand the links between cultural context and expanding women's STEM participation by studying the drivers of women's participation in these contexts. The research is significant because it promises to document factors that encourage women's successful participation in STEM in social, political, and cultural contexts that are very different from the US. These explorations of women's success, in turn, promise to shed light more generally on how context shapes women's participation in STEM in ways that inform our efforts to broaden participation in the US.

Technical Abstract
Women's participation is engineering is a crucial national priority. The shortage of engineers in the US weakens the country's position as a leader in the global market and restricts our capacity to solve infrastructural challenges. This project entails conducting research in four countries (Jordan, Malaysia, Saudi Arabia, and Tunisia) to assess the contextual factors that encourage women's participation in engineering in tertiary education and as a career. In three of the four countries identified (Jordan, Malaysia, and Tunisia), women's participation in engineering is much higher than in the US, despite social, political, and economic restrictions on women's participation in public life. In the fourth country (Saudi Arabia), women's engineering participation is also rising. This project seeks to understand the links between cultural context and expanding women's STEM participation by studying the economic, educational, socio-cultural, legal, and political drivers of women's participation in these contexts. This project will apply case study methods to collect rich data from focus groups and in-depth interviews in each country with female engineering undergraduate students, faculty members, and practicing engineers (total N=208-325). The research is significant because it promises to document factors that encourage women's successful participation in STEM in social, political, and cultural contexts that are very different from the US. With its cross-national, in-depth exploration of women's curricular and career choices and its attention to mechanisms producing gender-differentiated curricular and career decisions, this project promises to shed light more generally on how context shapes women's successful participation in STEM in ways that inform our efforts to broaden participation in the US.